Collaborative Research: Workshop to Develop a Roadmap for Greater Public Use of Privacy-Sensitive Government Data

Recent events have shown the value of better data sharing; the rapidity of change in COVID-19 and the difficulty of coordinating response is a clear example. At the same time, public concern over privacy is increasing, making it more difficult to collect reliable data. Improved use of government data by a wide range of users has potential to improve research as well as day-to-day operations at a variety of levels, from local to national and global. Government data can also foster innovation, providing opportunities for small companies based on large-scale data analysis that are increasingly reserved for large organizations capable of gathering their own data (often in ways that raise privacy concerns). We are running a 2-day workshop to identify challenges and explore mechanisms (technical, legal, and procedural) to enable greater use of privacy-sensitive data held by government agencies.

Privacy technology has experienced great advances over the past decade. Breakthroughs such as fully homomorphic encryption, differential privacy, and advances in secure multiparty computation have great promise to enable broader public use of data, while maintaining individual privacy. While there have been some successes, there are many applications where there is a significant gap between what technology offers, data needs of users, and policies and procedures to ensure privacy. This includes best practices as well as research and policy challenges that limit effective use of data. This workshop explores these concerns, highlighting new research challenges based on actual user needs for government data. This covers research in underlying technologies that address real-world challenges, as well as research in policy to enable use of technology in ways that provide appropriate levels of protection for privacy-sensitive data. The outcome will be a report identifying unmet needs of data users, issues limiting broader use of government data, and technologies and policies that show promise of bridging these gaps. This will serve as a roadmap for research investment to address these challenges.